Upgrade of an Isotope Ratio/Mass Spectrometer for Compound-Specific Isotope Analysis in Organic Biogeochemical Research

This award supports the upgrade of specialized instrumentation at Auburn University that can help answer research questions about the sources, transformations, and cycling of carbon-based compounds in the natural environment. The upgrade will allow an existing isotope-ratio mass spectrometer (IRMS) to perform carbon and hydrogen compound-specific isotope analysis (CSIA) of organic molecules. The upgrade will boost cutting-edge research in geosciences, biology, ecology, and engineering at Auburn. The upgrade will also enable interdisciplinary collaborations across diverse research fields. For example, CSIA can link isotope signatures to sources and transformations of organic compounds in industrial and oil spills, which in turn, informs remediation efforts. CSIA of organic molecules in the sediment and rock record can help reconstruct Earth’s past climate and help pinpoint regional and global changes in vegetation in response to climate change. The upgrade will also have broader impacts on Auburn and the larger scientific community in several ways. First, the upgrade will enhance the infrastructure at Auburn, fostering new connections between Auburn and other institutions in the southeast. In addition, the instrument upgrade will support undergraduate and graduate thesis work, providing students with technical knowledge and skills that are transferrable to the workforce. Finally, the award supports an isotope workshop at Auburn providing stipends for underrepresented students to acquire data using the instrument and learn analytical and laboratory skills.

Specifically, Auburn will acquire a Thermo TRACE gas chromatograph (GC) and key interface devices to configure an existing Thermo Delta V Plus IRMS for CSIA. Together, these components will create a continuous flow GC-IRMS system that combines the chromatographic separation of complex mixtures via the GC with stable isotope measurements. Currently, the instrument is configured with a Thermo Gasbench equipped to measure both carbon and oxygen isotopes of carbonate rock samples. After the upgrade, the instrument will be capable of both carbon and hydrogen CSIA for target analyses like hydrocarbons, chlorinated hydrocarbons, fatty acid methyl esters, and similar compound classes. Compound-specific isotope signatures will provide a level of detail not attainable through traditional techniques or bulk isotopic measurements and allow a wider range of analytical targets to support interdisciplinary research supporting senior thesis at Auburn University. This award received co-funding from the Established Program to Stimulate Competitive Research (EPSCoR) office.